Organometallic Complexes of Convex Hydrocarbons

The focus of this research is the synthesis and properties of hydrocarbons and organometallic compounds whose carbon frameworks can be identified on the buckministerfullerene (C-60) surface. These polynuclear aromatic compounds with curved surfaces possess bowl-shaped geometries and consist of five- and six-membered rings. The interesting difference between these compounds and the fullerenes is that, in addition to having hydrogens, they have both convex and concave surfaces. Thus, with organometallic derivatives one can study the preferences for complexation on either the convex or the concave side of the molecule, differential complexation at either five- or six-membered rings, and numbers and types of metals complexed, as well as a variety of other properties. With this award, the Synthetic Organic Program is supporting the research of Dr. Peter W. Rabideau and his co-PI, Dr. George G. Stanley, of the Department of Chemistry at Louisiana State University Baton Rouge. Professors Rabideau and Stanley will focus their work on the synthesis and properties of hydrocarbons and organometallic derivatives whose carbon frameworks can be identified on the buckministerfullerene surface. These polynuclear aromatic compounds with curved surfaces possess bowl-shaped geometries. The examples involving 30 carbons represent an exciting new family of hydrocarbons whose structures represent one-half of buckministerfullerene, and, as such, they are referred to as `buckybowls.`